Identification of Transmitter(s) at Rat Medial Septum/ Diagonal Band Complex

This project intends to define the chemical and electrical properties of two connected parts of the brain termed the medial septum and diagonal band of Broca. One unique function postulated for neurons of these brain regions is their ability to serve as generators for a specific electrical activity referred to as "theta rhythm". This particular rhythm has been associated with normal developmental and behavioral phenomena such as learning and memory, and abnormal behaviors such as dementia, depression, and affective disorders. However, the specific neurons within the complex under study responsible for the generation and/or modulation of theta rhythm and the cellular mechanism underlying this electrical activity are not known. Dr. Joel Gallagher has postulated that the neurons in this complex are heterogenous. As a result, different types of neurons serve different functions. These different neurons may be identified and characterized on the basis of their intrinsic electrical properties, their unique cellular anatomy and their complement of receptors for transmitters and modulators. Although the medial septum and diagonal band of Broca has been investigated as a general entity, Dr. Gallagher will examine each component of this complex in order to begin to understand how specific neurons in each component receive and transfer information at the cellular level.